NUE: The Nanosystems Emphasis- Valuing Disciplinary Depth and Differences in Nanoscale Science and Engineering Teams

This Nanotechnology Undergraduate Education (NUE) in Engineering program entitled, NUE: The Nanosystems Emphasis-Valuing Disciplinary Depth and Differences in Nanoscale Science and Engineering Teams at West Virginia University (WVU), under the direction of Dr. Lawrence A. Hornak, is a creative, broadly applicable, and interdisciplinary approach to achieving the challenging objective of preparing students for the nanoscale science and engineering workplace. This is an objective shared by the State of West Virginia for the development of its workforce which will be achieved through this project of WVNano, West Virginia's statewide NSEE initiative. The Nanosystems Emphasis bridges the traditional stovepipes of undergraduate programs in engineering and the sciences through a nine credit hour backbone of seminar and nanosystems research experiences spanning from the freshman to the senior year. Through this crosscutting, research oriented approach, students will be offered the opportunity to develop a Nanosystems Emphasis compatible with their own, often congested, schedule for their engineering or science major.

The proposal for this award was received in response to the Nanotechnology Undergraduate Education (NUE) in Engineering Program Solicitation (NSF 07-554).